Acquisition of HPLC/Capillary Electrophoresis-Electrospray Ionization Upgrade for Mass Spectrometer

This award from the Academic Research infrastructure Program will help the Department of Pharmaceutical Chemistry at the University of Kansas acquire an upgrade of Mass Spectrometry which will be used in research. The research activity to be supported includes conducting a wide variety of fundamental research in the chemistry of proteins, peptides, oligonucleotides, and synthetic macromolecules. Mass Spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic and organometallic molecules. The addition of the technique of electrospray extends the range of MS to protein and nucleic acid molecular weights far beyond any other technique. The use of electrospray ionization in combination with high resolution provides the latest techniques available in mass spectrometry. It affords the chemist one of the most powerful tools available for the characterization of compounds. The acquisition of this capability in mass spectrometry is essential for the prosecution of frontier research in many fields of chemistry.